Long & Medium Term Research: X-ray Crystallography Studies of Phycobiliproteins

Long & Medium-Term Research: X-Ray Crystallography Studies of Phycobiliproteins. This award recommendation is made under the Program for Long & Medium-Term Research at Foreign Centers of Excellence. The program seeks to enable U.S. scientists and engineers to conduct long-term research abroad at research institutions of proven excellence. Awards provide opportunities for the conduct of joint research, and the use of unique or compli- mentary facilities, expertise and experimental conditions in foreign countries. This award will support a twelve-month visit by Dr. Michael Becker of the University of Washington to work with Prof. Dr. Robert Huber of the Max-Planck-Institut fr Biochemie in Martinsried bei Mnchen, Germany, on "X-Ray Crystallography Studies of Phycobiliproteins." Phycobiliproteins of the cryptomonad algae have highly unusual spectral and morpho- logical characteristics. The principal investigator proposes to determine the structure of one of these proteins by X-Ray diffraction techniques. In order to find a phycobiliprotein suitable for X-Ray diffraction studies, the investigators will first isolate, partially characterize, and attempt to crystallize phycobiliproteins from several different species of the cryptomonad algae. Structural studies on these proteins could yield exciting information in at least two different areas of biochemistry: photosynthetic energy transfer, and protein folding and aggregation.